An REU Site in Chemical Engineering at Clemson University: Experimental Research in Novel Materials

Clemson supports a Research Experiences for Undergraduates (REU) Site in its Chemical Engineering Department with an experimental materials studies theme. Eight students are recruited nationwide every year for a ten-week summer research experience, with a recruitment focus on the Southeastern United States. Undergraduates with a chemistry, chemical engineering and materials science background are especially targeted. Students participate in a variety of research projects within three major categories: polymeric, catalytic and bio-inspired materials. Undergraduates also participate in oral and written communication workshops and in tours of chemical and manufacturing companies nearby.